The High-Pressure Stability of Majorite Garnet

9303865 Gasparik The principal objective of the proposed research is to determine the high pressure stability of majorite garnet in volatile bearing systems and on the enstatite-diopside and diopside-jadeite joins. The experiments will utilize mixes of oxides or synthetic compounds and will be conducted in a split-sphere anvil apparatus at pressures up to 230 kbar. The results will find application in understanding the composition, the role of volatiles, and the high-velocity gradients in the Earth's transition zone.